North America Dynamics and Western U. S. Deformation

EAR-0106892
Eugene D. Humphreys

The investigators address North America plate dynamics by modeling
the forces applied to the
plate and comparing the predicted stresses with those inferred from the style
of ongoing tectonics and those observed in drill holes. Modeling is done with
the finite element method. Input forces applied to modeled North America
include boundary and basal forces, and those generated internal to the plate
(arising from potential energy variations such as those created by topography).
The relative magnitudes of applied forces are estimated to account for stress
and deformation information. Furthermore, because the magnitude of many of the
forces applied North America are well known a priori (such as ridge push), the
magnitude of all the the applied forces will be well constrained. Tectonic
stresses deform North America at a rate inversely proportional to its strength.
The investigators model strength with a viscous rheology, which they
estimate by ratioing the
calculated stress with the (reasonably well known) strain rate.
The research can be divided into several tasks: estimation of input fields,
description of an appropriate finite element representation of North America,
evaluation of model predictions against observables, and as modeling progresses
toward resolving the input fields and assessment of their uniqueness.
--